Conference: Graduate Student Support to Attend the Conference, MIP2010: The Future of Molecular Imprinting, August 8-12, 2010, New Orleans, Louisiana

This NSF award by the Chemical and Biological Separations program provides partial travel support for US graduate students to attend MIP2010: The 6th International Conference on Molecular Imprinting held August 8-12, 2010 in New Orleans, LA.

MIP2010 is a biannual forum where international researchers from academia, government, and industry meet to review advances in the field, and define areas for future investigations. For the first time, this conference will be held in the United States. The importance of having this meeting in America cannot be emphasized enough. Both current chairs (David Spivak of Louisiana State University and Kenneth J. Shea of the University of California in Irvine) have attended all five previous international meetings, where attendance by U.S. based scientists has fallen drastically from approximately 30 out of 130 (23%) persons at the first meeting in Cardiff, Wales in 2000; down to 3 U.S. scientists out of 225 (1.3%) at the meeting in Japan in 2008.

To encourage the participation of young scientists at this years international
Conference, the PI will offer Graduate Student Travel Awards to offset a portion of the travel expenses to the conference.

Broader Impacts

The Journal of Molecular Recognition (JMR) has contracted to publish a special edition dedicated to the MIP2010 conference. The PI is also working with John Wiley and Sons, to organize papers submitted from presenters at the MIP2010 conference. Graduate students studying the subject of molecular imprinting, or related fields will have the opportunity to interact with international graduate students and experts in the molecular imprinting field. Not only will discussions enhance their understanding of molecular imprinting, it will also promote the development of research collaborations. Also, this is an important opportunity for the graduate students to present their work at an international conference.